CSR-PDOS-Collaborative: Virtual Machines Meet Application Clusters: A Highly Responsive Global Utility Computing Platform for Internet Applications

CSR-PDOS-Collaborative: Virtual Machines Meet Application Clusters: A
Highly Responsive Global Utility Computing Platform for Internet
Applications

Abstract:

With the omni-presence of Internet applications, service-oriented computing
increasingly plays a dominant part in global computing. Thus,
understanding how to build efficient platforms for service-oriented
computing is critical in supporting continued Internet proliferation. The
overriding goal of this research is to gain such understanding, and in
particular to investigate basic principles in building a global Utility
Computing for Internet Applications (UCIA) platform that is highly
responsive in resource reallocation, provides resource isolation to
different applications, and supports heterogeneous execution environments.

This research encompasses a number of specific directions. This includes
studying tradeoffs between different architectures for resource sharing in
a global UCIA platform and investigating efficient algorithmic approaches
to request distribution and application placement that account for the
computational cost of executing the algorithms and the interaction of these
two policies. It focuses in particular on the interaction between two
foundational technologies in global UCIA, wide-area application clustering
and virtual machines. By leveraging these technologies in a novel way,
this research promises a significant speed-up in resource redistribution
among applications. To quantify its findings, this project utilizes a
wide-area testbed running a sample of off-the shelf Internet applications
and emulating several data centers.

Internet applications are transforming the Web from an information system
into a global service-oriented computing platform. By improving our
ability to build highly responsive, global utility computing platforms for
Internet applications, this research will support continued progress in
this important direction.